EAGER: The Greenland Physics Problem

1010147- Klabjan

Abstract

An Operations model will be developed for supporting science projects at Summit Station, in the context of NSF's other activities in Greenland. Input options for logistics, research activities, cost attributes and energy and emission options will be processed in the model. Solutions will be expressed in costs per year, carbon footprints, and operations and logistics strategies. The project will be assisted by a graduate student for two years and upon graduation the knowledge acquired will transfer to the industrial, governmental, and public world. Attempts to recruit a student from a minority or underrepresented group will be undertaken.